US-Germany Cooperative Research: Design and Verification Formalism for Enterprise Integration

0331796
Jafari
This award supports the PI, co-PI, students to collaborate with Hans-Michael Hannisch of the Department of Engineering Science at the University of Halle, Germany. The US and German sides will work together to develop distributed plug-and-play design formalisms and technologies for enterprise integration. This will include integration from the shop floor up through the supply chain network. On the shop floor, they will design distributed plug-and-play components with embedded controllers synthesized from control specifications. Beyond the shop floor, they will design distributed plug-and-play components and verification formalisms based on business rules. The proposed collaboration will enable the development of an inter-level standardized formal approach to integration of distributed systems. International standardization is important to acceptance by industry acting in global markets.

The broader impacts of this collaboration are that it increases interactions between US researchers and those in Germany, it promotes collaborative opportunities and career development for US junior faculty, and the results of the research will be directly relevant to the needs of industry.